Hetero-epitaxial Growth of Organic Semiconductors (Materials Research)

New organic conductors and semiconductors are currently being synthesized chemically based upon the metal phthalocyanines. The possibility of growing these new organic semiconductor materials in thin film form by a molecular beam epitaxy method will be examined. Improved electrical properties are expected over the bulk crystalline material.